Development of an Advanced Electron Spin Resonance Spectrometer for Nanocrystal Material Research

This project will establish an Electron Spin Resonance (ESR) laboratory at the University of California in LosAngeles which will be used by faculty from UCLA, UCSB, Los Alamos National Laboratory, Columbia University, Georgia Institute of Technology, and industrial staff. This laboratory will be the only one of its kind in the United States and has two goals. First, to conduct research in some of the most recent areas of solid state physics, emerging under the name of nanocrystals, the most prominent examples being the fullerene (e.g. C60 and higher homolog) compounds. The common character of these materials is that an intermediate length scale (nanometers) occurs, leading to a spatial segregation of the different strength interactions. The various spin state nanostructures are expected to result in richer ESR signals than in simple, bulk materials because of weakness of the interstructure couplings. Pulsed ESR provides the necessary sophisticated means to separate and identify the nature of the different spin states. Secondly, to expand the range of applications of time domain ESR spectroscopy. UCLA faculty intend to work in close collaboration with industry regarding technical developments, in order to maintain the spectrometer's integrity. The aim is to implement the technical changes in parallel in the laboratory and in the industrial research facility in a way which is suitable not only to specific daily research needs but for the widest possible range of applications and for production of industry as well. The personal contacts, from the production line to the management of the industrial sponsor, and the understanding of their capacities and interest, provide an unique opportunity for an exemplary collaboration, a mutually beneficial two sided technology transfer process between UCLA and industry, while maintaining a state-of-the-art, growing laboratory at UCLA over an extended perio d of time. The presence of the laboratory at UCLA will enhance research potential in different areas as well, such as organic chemistry and biochemistry. Over the first five years an estimated 15 graduate student will acquire experience with the technique and will learn to exploit the potentials of time domain ESR.